Topics on Low-Dimensional Manifolds

DMS-0204535
Shuguang Wang

The project will study several issues in Topology and Geometry.
The central theme is that of real structures which can be defined
on symplectic and contact manifolds. With the presence of such
structures, the proposal aims to introduce new versions of Gromov-Witten
theory, Seiberg-Witten-Floer theory, and to apply the resulting
invariants to String Theory as well as Real Algebraic Geometry.
Another aspect of the project will study related analytical problems
on manifolds that possess open conical singularities.

Real Algebraic Geometry concerns the real solutions of real polynomials
which arise naturally in many real-life applications. Despite the
fact that this is one of oldest Mathematical branches, we have so far
made very little progress in understanding it. Our project will attempt
to fill the gap partially by using new machinery following from the
pioneer work of Donaldson, Floer, Taubes etc. It was Einstein's dream
to unify all four fundamental forces in the nature. Through Quantum
Mechanics, it is possible to unify the strong force, the weak force and
the electro-magnetic force. However the unification with the fourth
force, the gravity, has eluded some of the greatest thinkers of our time.
Nowadays it is commonly believed that String Theory offers the best hope
to achieve this last unification. Complex manifolds with real structure
are called orientifolds in String Theory. These are popular but
still poorly-understood objects for Physicists. A purpose in the project
is to lay down a rigorous mathematical foundation for Gromov-Witten